Integration of Mathematical Software into Calculus Courses

Faculty will establish a microcomputer laboratory to support the calculus sequence. Numerical, symbolic and graphing capabilities of computers will be used to change the instructional emphasis in calculus to an expanded coverage of concepts.